Political Cultures and the Early Development of Genetics in Latin America

While scientific theories are debated on a seemingly abstract, academic plane in the leading developed countries of the world, developing countries have long been interested in new scientific developments in order to apply them for their own purposes. Yet little is known about the interest in, development and impact of new scientific theories in developing societies. Professor Glick is looking at one aspect of this phenomenon. Specifically, under this grant, he is undertaking a comparative study of the first phase of the reception of Mendelian genetics in Uruguay, Argentina and Brazil (Rio Grande do Sul). In all three countries, early genetics was introduced by biologists working in schools of agronomy or in agricultural experiment stations. Of particular interest is the relationship between early genetics and the improvement of herds of "creole" cattle--a matter of debate since the 1860s and one which, in Uruguay, had been waged between partisans of "crossing" and selection, in the context of the contemporary polemic of Darwinism. The fact that genetics was introduced there by German agronomists ensured that the discussion of breeding continued in an evolutionary framework. In this research, Professor Glick seeking to determine just how much early genetics was tailored to the demands of the breeders in Argentina and Rio Grande do Sul, two other areas where cattle breeders were a predominant economic interest group and where debates over creole cattle had taken place. Professor Glick is studying not only the political relationship between breeders and genetics but also the extent to which breeders themselves kept abreast of changing scientific ideas.